RIA: Computer Aided Geometric Design and Motion Synthesis

The research seeks to combine concepts in Kinematics and Computer Aided Geometric Design (GAGD) to study motion interpolation and approximation problems from a computational geometric perspective. The goal is to develop computational geometric structure and algorithms that are suitable for computer aided geometric synthesis of rigid body motions both with and without kinematic constraints. The basic approach involves converting the motion synthesis problem into a geometric problem of designing curves, surfaces, or solids. This is made possible using an orientable kinematic mapping which transforms motions (with one or more degrees of freedom) in the Euclidean space into curves, surfaces, or solids in a special projective space called the image space. The mapping facilitates integration of various methods in the fields of GAGD and computer algorithms to solve the motion synthesis problem. The research will develop image- space algorithms for designing a class of smooth piecewise parametric motions that interpolates through a sequence of displacements and develop geometric methods for approximating algebraic motions with the parametric motions. The results, in addition to their theoretical interest in computational geometry of motions, have applications in the design of spatial mechanisms and manipulators, computer animation of motions, and mechanical system simulation.*** //